Efficient Extensions of Well-Founded Semantics for Functions, Aggregation and Collection Types

Recent research has demonstrated that the well-founded semantics and its equivalent, the alternating fixpoint semantics, can be implemented efficiently on deductive databases (relational databases with additional function free logical rules, which may introduce intertwined negation and recursion). Logic programming is a natural candidate for a database programming language because it shares the relational paradigm. This project is studying extensions to traditional logical languages that are likely to be useful for database programming, including nested relations and aggregation. Deductive rules involving aggregation as a primitive operation permit a natural and concise expression of several well-known optimization problems, such as shortest paths in a graph. However, implementation of such primitive operations is complicated by the fact they they occur inside recursion; that is, the relation being aggregated within a deductive rule is also being defined in part by that same rule. Greater complications are added if the rules may contain negation. This project is developing algorithms to implement aggregation efficiently within recursion and negation. Collection types are a valuable adjunct to deductive database languages, and are closely related to aggregation, nested relations, and complex objects. A collection type is any data type suitable for representing a finite set. With collection types, a language can manipulate relations (and nested relations) directly. This research is designing a language to integrate collection types with deductive database rules, with sufficient restrictions on the collection-typed objects to make efficient implementation possible. For example, the language excludes unification among partially instantiated sets. Integration of the functional programming paradigm and the relational paradigm of logic programming is also being studied. Data typing plays a central role. In logic programming functional terms are normally uninterpreted, and specific data types are not declared. The main idea is to establish contexts in which functional terms are interpreted as user-defined functions. The objective is to provide a high level language that can manipulate sets and relations in a convenient and understandable way, with sufficient power to solve practical applications.